Topological Techniques for Computing with Perverse Sheaves

9971030
Grinberg
This award supports the research of Mikhail Grinberg, a postdoctoral
associate of Professor deJong. Perverse sheaves are a part of algebraic
topology that is about twenty years old. They have been applied with great
success to the study of complex algebraic singularities. Perhaps the most
notable applications have been to spaces and stratifications related to
algebraic groups, yielding new insights in representation theory. Over the
next two years, M. Grinberg will work on four research projects whose
common goal is to develop the computational techniques of the subject.
Specifically, the focus is on computing microlocal invariants of sheaves
and stratifications and on computing with nearby cycles sheaves, in the
presence of symmetry. The first problem is to understand the microlocal
geometry of the nilcone in a complex semisimple Lie algebra. The second
is to study the geometry of the enveloping semigroup of a semisimple group,
recently introduced by E. Vinberg. The third project is to explore possible
applications of quasi-conical symmetry to the microlocal study of
stratifications. The last project, joint with D. Kazhdan, is to study the
space of formal arcs of finite codimension in a singular variety. The
common theme throughout this work is to learn to extract the key topological
invariants of the singular spaces and maps that arise in the study of
algebraic groups, their representations, and invariants.
Loosely speaking, the theory of perverse sheaves is a systematic way
to exploit the fact that, for a singular space defined over the complex
numbers, the real and the imaginary directions contribute to the topology
in dual ways. This theory is a part of algebraic topology: a branch of
mathematics concerned with the properties of higher dimensional spaces
that are preserved under continuous deformations. Most applications of
algebraic topology are based on the following key idea: to consider all
objects of a certain kind as points in a single ``configuration space''
(sometimes called a ``parameter space'' or a ``phase space''). For example,
all possible states of a mechanical system, or all possible situations in an
economic game (e.g., an auction) may be viewed as points of an appropriate
configuration space. The topological properties of this space may then be
used to determine qualitative properties of the associated objects, such as
whether the mechanical system will evolve towards a periodic motion, or
whether the players in a game have optimal strategies.
***